Purchase of A New Electron Microprobe

9316495 Carmichael This award provides 71% of the funding necessary for the acquisition of a new electron microprobe that will be installed and operated in the Department of Geology and Geophysics at the University of California-Berkeley. The University is committed to providing the remaining funds necessary to acquire this instrument. The electron microprobe is a versatile electron beam instrument capable of accurate analysis of chemical composition of solids for major element constituents to trace elements and has an analytical spatial resolution on the sample target of a micrometer. The new UC-Berkeley electron microprobe will be primarily used by research groups in the Department of Geology and Geophysics, the Lawrence Berkeley Laboratory, other campus and off-campus groups with research needs for microanalysis of solids. ***